The dynamics of high relief transitional landscapes

SGER: The Dynamics of High Relief Transitional Landscapes

William J. Reinhardt
University of Memphis
EAR-0639785

ABSTRACT
The primary goal of the proposed research is to investigate via a series of simple physical experiments the role of local base-levels on the development of mountainous topography. These experiments are motivated by a major shift in focus within the geomorphic community towards investigation of transient landscape dynamics. Transient landscapes are the most common type of terrain and are sensitive to, and record the influence of, climate change, human activities and tectonic forcing. This research aims to derive quantitative measures of transient topography and aid in the development of a metric for the recognition of a transient signature in the landscape. The experimental apparatus is an erosion box in which two opposing panels are able to slide independently, so simulating base-level fall or rise across an emerging topography. An ultra-fine misting apparatus mounted overhead generates rainfall. The experiments are highly photogenic and an educational video of one experiment is available to the community via the St. Anthony Fall Laboratory website.